Thyroid Hormone Regulation of Tadpole OTC Expression

One model system for the study of thyroid hormone action is amphibian metamorphosis. During the change from tadpole to frog an induction of urea cycle enzymes occurs, and in particular a large increase of hepatic ornithine transcarbamylase (OTC) activity, have been shown to be induced by thryoid hormone. In this proposal one of the primary aims is to determine the relationship between the time of thryoid hormone administration and the changes in OTC mRNA and enzyme activity. These experiments will involve treating tadpoles for various periods of time with thyroid hormones or selecting tadpoles during various stages of natural metamorphosis and measuring the hepatic levels of OTC activity and OTC mRNA levels using a tadpole OTC cDNA probe. Dr. Jaffe will analyze and compare the time course of the induction of OTC mRNA and enzyme activity by thryoid hormones as well as the relative magnitude of their induction. Using similar techniques he will determine if the OTC mRNA is induced in a tissue specific manner. The next series of experiments will employ nuclear run-on assays to determine the extent to which the increase in OTC mRNA is due to a thyroid hormone effect at the transcriptional level. In addition, an analysis of the time course of the change in transcription rate will be compared to the change in OTC mRNA and enzyme activity. The final series of experiments will be aimed at cloning the tadpole OTC gene. Various cell lines will be transfected with chimeric plasmids constructed by ligation of the 5' flanking regions and its various subfragments of the OTC gene to the chloramphenicol acetyltransferase gene, to determine the region responsible for the thyroid hormone inducibility and tissue specific expression of OTC. If successful these studies will provide information on the molecular action of thyroid hormone as well as the regulation of development.